Embeddings and Group Actions

DMS-0201695
John R. Klein

This proposal contains two programs. The first is to study
a variety of homotopy theoretic problems associated with
space of smooth embeddings of one manifold in another. Among
these problems are obstruction theory for embeddings, linking phenomena, compression problems and splitting questions. The
second program is a new approach to the study of the equivariant structure sets of topological manifolds equipped with a
tame action of a finite group. The new ingredient is to use
Poincare embeddings to analyse the difference between the
equivariant structures and the isovariant ones.

A manifold is a topological space which is locally euclidean.
A fundamental problem in topology is to enumerate the embeddings
one manifold into another one. The set of all such embeddings
forms a topological space. The first part of this proposal is
to study various topological aspects of the space of embeddings.
The second part concerns the classification of manifolds equipped
with a finite group of symmetries.